Equipment for a Modern Undergraduate Cell Biology Laboratory

In this project, students will be introduced to some of the instruments, techniques, and concepts of modern Cellular and Molecular Biology through a series of experiments performed with primary cultures of skeletal muscle cells prepared from chick embryos. The new equipment provided through this project consists of a biological safety cabinet and controlled-atmosphere incubator for the preparation, maintenance, and incubation of cell cultures of skeletal muscle (a cell type that differentiates in vitro and lends itself to a variety of cell biology experiments), an ultra-low-temperature freezer for the storage of perishable materials needed for cell culture, a liquid scintillation counter, micro-computer and associated software for the quantification, analysis, and presentation of the results of radiobiological experiments designed to investigate the rates of synthesis, degradation, transport, and secretion of muscle proteins, and three gel electrophoresis units for the determination of the molecular weight and identity of muscle- specific proteins. These experiments will allow students to use a variety of techniques from modern Cellular and Molecular Biology to explore some of the fundamental properties of living cells.